Coherent and Ultrafast Electron Dynamics in Molecules

Recent advances in attosecond science have revealed clear signatures of charge migration, the coherent, few-femtosecond redistribution of valence charge triggered by attosecond pulses or intense optical fields. Yet a quantitative, first-principles description of how such electronic coherence is generated, how charge density evolves in correlated multi-electron molecules exposed to strong fields, and how these dynamics can be controlled or probed, remains an outstanding challenge. Meeting this challenge requires theoretical tools capable of resolving multichannel ionization, electron correlation, and field-driven dynamics with the accuracy demanded by attosecond spectroscopy. This project will address that need by applying ATTOMESA, a first principles, time-dependent quantum-chemistry method developed in the PI's group, to establish a predictive framework for tracking ultrafast charge migration in halogen-containing carbon chains and mid-size biomolecules. This project will advance the fundamental understanding of ultrafast electron motion in molecules by providing a first-principles description of how electronic coherence is created and how charge migration unfolds following strong-field and multiphoton ionization. This project will advance the understanding of ultrafast electron motion in molecules, a foundation for future control of chemical reactivity, charge transfer, and light-driven processes in photochemistry, molecular design, and attochemistry. By clarifying the role of electronic coherence and how it propagates in molecules, the research will also contribute to emerging concepts in quantum information, where coherence, entanglement, and ultrafast electronic control represent essential ingredients. The computational tools developed in this work, including new capabilities within the PI's ATTOMESA framework, will be released through the AMOS Gateway to broaden access, supporting the broader AMO and quantum-chemistry communities and enabling time-dependent simulations of coherent electron dynamics in selected molecular systems. Outcomes will feed directly into education and workforce development through new instructional materials on ultrafast processes, integration with cyberinfrastructure-based training, and sustained mentoring of undergraduate and graduate students.

This research will yield quantitative insight into the mechanisms that generate coherence and drive charge flow and will directly support ongoing and new photoelectron and high-harmonic pump–probe experiments, including those enabled by next-generation few-femtosecond UV pulses, by linking theoretical predictions to experimentally accessible observables. Together, these efforts will advance the understanding of ultrafast electron dynamics in complex molecules and help shape the next generation of attosecond measurements. Although charge migration is central to attosecond science, its governing mechanisms, including multichannel ionization, electron–ion entanglement, coherence loss, and field-driven mixing, remain incompletely characterized in realistic molecular systems. Using ATTOMESA, an ab initio time-dependent quantum-chemistry framework that combines accurate electronic structure with a channel-resolved continuum treatment, we will quantify coherence creation, initial hole localization, and early-time charge redistribution in halogen-containing carbon chains and mid-size biomolecules. A core goal is to determine how these dynamics manifest in experimentally accessible probes, particularly high-harmonic spectroscopy and molecular-frame photoelectron angular distributions, in close collaboration with state-of-the-art pump–probe experiments. The resulting predictions will refine existing models, provide rigorous benchmarks for interpreting attosecond measurements, and inform strategies for
probing and controlling electronic motion on its natural timescale.